A Unified Model of Individual Competence and Knowledge Aggregation

The goal of the research is to contribute an improvement in the quality of scientific data collected from human informants. The technique involved permits the simultaneous analysis of the competence of individuals to provide information and the accuracy of that information taken collectively. The problem which this research addresses is commonly encountered in many areas of social and behavioral science; namely, how to measure the knowledge and abilities of informants when there are no predetermined "correct" answers to questions or when the correct answers are not known by the researcher in advance. For example, anthropologists have to deal with the problem in studying little- known cultures or in making cross-cultural comparisons. Linguists must cope with it in studying the syntax of exotic languages. Sociologists deal with it in performing research on attitudes. Social psychologists come across it in studying the reported behavior of deviant groups, and the problem also arises in studies involving the pooling of expert opinion for purposes of forecasting or policy analysis. The work to be carried out under the recommended grant will complete the program of research supported by two previous grants; specifically, perfection of the coherent set of mathematical models derived from consensus theory, unification of consensus methodology with latent structure analysis, and extension of the methodology to psychophysics, to such scaling situations as are found in utility measurement, for example, and to other areas of application such as the assessment of personal risk in decision making experiments.